The Nature and Reactivity of Soot

The distribution of carbon black, or soot, is widespread with sources such as fossil fuel combustion and forest fires. Soot is a significant contributor to the global burden of suspended particulate matter in the lower atmosphere. The reactivity and catalytic activity of particulate carbon are dependent upon the nature of its surface. These heterogeneous chemical reactions are poorly understood, but their role in the chemistry of the atmosphere is becoming recognized as a possibly an important one. In order to assess the importance of soot-related heterogeneous reactions, knowledge is required of the reactions of soot with atmospheric gases and the properties of soot responsible for those reactions. This project is a continuation of work aimed at understanding the mechanisms through which the presence of soot influences the chemistry of atmospheric species including sulfur dioxide, nitrogen oxides, and ozone. This work involves characterization of the surface properties of soots produces by various combustion conditions and identification of reactive intermediates and mechanisms. This project will extend the research to photochemical processes under simulated solar radiation and to more atmospherically realistic multicomponent systems involving oxygen and water.